Cosmic Ray Modulation Using Ground-Based Neutron and Spacecraft Cosmic Ray Detectors

In the proposed effort, the PI will continue the operation of the cosmic ray neutron monitors at Mt. Washington and Durham through the next modulation minimum (1996-97), as well as continuing studies which relate ground-based cosmic ray observations to near- Earth cosmic ray telescope data. Specific problems the PI intends to investigate are: (1) the interplanetary cosmic ray radial and latitudinal gradients; (2) location of the termination shock and cosmic ray modulation boundary using cosmic rays; (3) significance of the correlation of the cosmic ray intensity charges and the heliospheric current sheet; (4) recovery phase of the 11-year cosmic ray intensity cycle; (5) the 22 year cycles...comparison of the intensities at successive intensity maxima; (6) rigidity dependence of transient decreases; and (7) solar cosmic ray events.